Detector for MiniBoone

9804051
Conrad
One of the important issues in particle physics in recent decades has been the question of neutrino mass. To date, no experiment has clearly measured a neutrino mass that is different from zero. This proposal requests construction funds for an experiment that will make a definitive measurement in a mass region where some indication of non-zero mass has been seen. In addition, this experiment includes significant education/outreach components.